The Effect of Porosity on Localization in Forging Processes

The project is aimed at the theoretical development and experimental verification of constitutive models for porous viscoplastic materials that will be useful in assessing the effect of porosity on localized deformation. Such constitutive models will lead to the development of improved tools for computer simulation of deformation processing of metallic materials.